Acquisition of a 500-MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program and the Major Research Instrumentation (MRI) Program will assist the faculty in the Department of Chemistry at North Dakota State University to acquire a 500 MHz NMR Spectrometer. This equipment will enhance research on elucidating the structures of silicon-containing heterocycles and oligosilanes, aid in the stereoselective synthesis of unusual amino acids, nitrogen heterocycles and alkaloids, and facilitate the design and development of chiral catalytic methods for the preparation of small organic molecules with high enantiomeric purity. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.